Research Experiences for Undergraduates at Baylor University

Dr. Charles Garner and other members of the Chemistry Department at Baylor University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. Additional acitivites include weekly research or instrumentation seminars; hands-on courses in glassblowing, chemical structure drawing, and literature searching; field trips to chemical industries; and opportunities for presentation of research results. While participants are recruited nation-wide, special emphasis is placed on two- and four-year institutions in the Texas region with large Hispanic and African-American enrollments.